MRA: Network-Based Training and Access to HPC using NERO-- the Network for Engineering and Research in Oregon

9523629 Pancake This NSF Metacenter Regional Alliance(MRA) will Link the Oregon Joint Graduate School of Engineering to the San Diego Supercomputer Center. The objective is to improve access to high performance computing (HPC) for engineers and scientists in the Pacific Northwest. Facilitating this collaborative work will be a high speed fiber optic network, the Network for Engineering and Research in Oregon (NERO), which was first deployed in 1994. The proposed MRA will exploit that infrastructure to expand the HPC user community through distributed access to HPC platforms, to tools and environments supporting parallel programming, to online training materials and example applications, and to key human resources via several types of remote collaborative sessions. The MRA will exploit the NERO infrastructure to provide: a distributed, network-based repository of information on HPC tools and environments network-based, interactive training materials and example applications developed specifically for non-computer scientists network-wide interactive broadcasts of seminars, remote user group meetings, and interactive consulting sessions, both real-time and as after-the-fact replay desktop videoconferencing, shared white boards and shared file system for MRA collaboration over the NERO wide area network highspeed network access to parallel computing platforms within Oregon dedicated network access to the San Diego Supercomputer Center a framework for collaboration with other national and regional metacenters